Harmonic Analysis and Affinely Invariant Measures

Abstract

This project will focus on the relationship of affinely-invariant measures to
certain problems in harmonic analysis. Drury observed that affine arclength
appears to be the natural measure to use when considering averaging and Fourier
restriction operators associated with certain curves. More recently, the PI has
obtained certain uniform results along these lines for curves in two dimensions
and for surfaces in higher dimensions. He intends to continue these
investigations and also to consider some questions of an integral-geometric
nature. The latter stem from the concept of affine dimension, an analog of
Hausdorff dimension which also takes into account a set's curvature.

The averaging operators considered in this project belong to a class of smoothing
operators which play an important role in the study of physical processes like
wave motion and heat propagation. These operators are also related to the Radon
transforms which appear in tomography. Similar operators are important in signal
analysis and communications theory. The Fourier restriction operators considered
here are part of the theory of Fourier analysis. Their study contributes to the
general understanding of the Fourier transform, a tool which is vital to
applications of mathematics ranging from electrical engineering and
communications theory through fluid dynamics.